Decision Analysis in the Presence of Jump Risk

There is a growing statistical evidence that many price processes
(stock prices, index values, exchange rates, interest rates)
exhibit presence of very small, but very frequent jumps. Moreover,
this behavior seems to be unstable over time, sometimes the
presence of small jumps is very strong, but sometimes almost
nonexistent. Traditional decision control analysis uses diffusion
models with possible addition of infrequent large jumps to study
problems related to the market control.

Because of the statistical evidence of jump presence in many
price processes, it is proposed to study:
1) How the market agent (investor, regulator) should
react to the presence of jumps? What is the optimal strategy to use?
2) Is the optimal strategy different for the problem without jumps
in contrast to the problem with jumps? Is the strategy for the
problem without jumps (diffusion model) robust in the sense that
if used for the problem with jumps, it performs reasonably well?
3) Given that there is a significant uncertainty about the
presence of frequent small jumps in the first place and the
strategy found for the diffusion problem is not robust, find a
reasonable strategy which would perform well in both models.